Cores of Early-Type Galaxies and Dark Matter Halos

The project will investigate the cores of galaxies, with the aim of searching for supermassive black holes in the nuclei of galaxies by looking for large central gradients in rotation velocities and velocity dispersions. In another area, an atlas of photographs of dust distributions in early-type galaxies will be published. There will also be a study of scalling laws for dark matter halos of galaxies. The Principal Investigator is an expert in this research area.